S-STEM Scholarship Program: Building Upon a Legacy of Success

Scholarships are being awarded to academically talented, financially needy upperclass students majoring in biology, chemistry, the geological sciences, or physics. The project is building on an existing successful CSEMS project for students majoring computer science. The following objectives are being met 1. decreasing the financial debt of graduates via scholarships and counseling; 2. decreasing the number of students working in non-intellectually engaging jobs by increasing opportunities for students to work on a faculty member's funded research or through approved co-op or summer internships with industry partners; 3. improving employment placement with industry partners; 4. increasing the graduation rate of students, particularly minority and female students; 5. decreasing the average time to degree completion for students; and, 6. increasing the number of graduates who enroll in graduate school.